Insect Collection Improvement

The insect collection of the American Entomological Institute, containing 822,000 specimens, emphasizes parasitoid Hymenoptera. As natural enemies of other insects, hymenopteran parasitoids are extremely important as biological control agents of agricultural pests. The Entomological Institute's holdings of Hymenoptera are among the largest in the world, and the collection is used heavily in research. This award will provide funds for a collection manager for three years, to keep the collection available to visitors, process loans of specimens, catch up with a backlog of specimens to be mounted, labeled, and sorted, enhance the taxonomic arrangement so that specimens are more readily available, and keep up with the normal influx of specimens into the collection. The award will also provide new collection storage equipment to accommodate near-term expansion.